Creation of Public Use Tapes and Documentation for the RAND Jury Verdicts Data Base

Although a relatively small percentage of civil damage lawsuits are disposed of by jury trial, the verdicts that juries return have a significance to the civil justice process that is far out of proportion to their numbers. They represent the visible portion of the decisions that are reached by participants in civil actions and are frequently cited as indicators of trends and developments in the entire civil claims system, not simply the activities that take place in courtrooms. However, research focusing on civil jury verdicts has been seriously hampered by the lack of sound empirical data, organized in ways that are amenable to statistical processing and analysis. Recognition that there has been a dearth of useable data led to the decision by the Institute for Civil Justice to undertake a large-scale data collection project focusing on jury verdicts from selected jurisdictions in Illinois and California and including comprehensive data on more than 25,000 civil damage cases between 1960 and 1985. The result of that data collection is the Jury Verdicts Data Base. Specifically, Dr. Dungworth seeks to create and document Public Use Tapes containing a cleaned and edited version of the Jury Verdicts Data Base. These data will be located in a public archive and made available for distribution to the research community. Through making accessible a rich body of data in an area ripe for new empirical work, this project holds substantial promise of advancing our understanding of the civil litigation process, its costs, and its outcomes.